Discrete and Continuous Extremal Problems in Approximation Theory

Technical Abstract:

The research will primarily focus on three areas: (i) the
existence and determination of asymptotic interpolation
measures for multivariate polynomial interpolation; (ii) inverse
problems for the 2D Laplacian; (iii) asymptotics for minimal
energy points on the sphere in n-dimensional Euclidean space.
Regarding (i), the research is expected to result in algorithms
for discretization of certain algebraic curves. Concerning (ii)
we will explore a new method based on best meromorphic approximation
for the nondestructive testing of homogeneous bodies for
faults (cracks). Regarding (iii), we shall investigate the
limiting behavior of point sets on the sphere generated by
certain minimum energy criteria and also devise fast algorithms
for "near-optimal" point sets. In all phases of the research,
potential theory is expected to be a useful tool.

Non-technical Abstract:

The research will primarily focus on three problem areas:
(i) the noninvasive detection of faults (cracks) in homogeneous
media, (ii) near-optimal configurations of large numbers
of sampling points on a sphere, and (iii) the determination
of near-optimal sampling points on certain curves. Regarding
(i), the goal is to develop an efficient algorithm (program)
that utilizes only boundary data to determine the existence
and location of cracks inside a conducting material. Concerning
(ii), we shall investigate point sets on the sphere that
arise in the structural analysis of large molecules, and also
serve as well distributed locations (eg. on Earth) for sampling
climate data for global weather models. Regarding (iii), we shall
explore point sets on certain curves that can be used for
geometric design and data sampling purposes.